Dual-Arm Robot Control Based on the Kinematics of Crawling Child

This research project is to formulate and develop model definition and data gathering methods sufficient to analyze the kinematics and motion kinematics of a crawling child's limbs and torso system. These data and model will be used as design concepts and procedures in the analysis and the development of a robot system consisting of dual-manipulator arms equivalent to the hip-knee leg and shoulder-elbow-wrist hand subsystems of the child, and a stewart Platform with full six degrees of freedom, which models the child's torso.